Precise Conditions for Permutation Tests to Control Multiple Testing Error Rates

The purpose of this project is to improve the control of multiple
testing error rates. A popular approach to multiple testing is based on
permutation. One motivation for the use of permutation-based
testing is to reduce the conservativeness of the tests while still
controlling error rates. Permutation-based tests are thought to achieve
this by incorporating the multivariate distribution of the multiple test
statistics. However, the hypotheses for which permutation testing is known
to be appropriate are different from those usually considered in multiple
testing. In this project, the investigators precisely describe model
assumptions and conditions for permutation testing to control multiple
testing error rates. In particular, the investigators study precise model
assumptions connecting the marginal distributions of interest in multiple
testing to the joint distributions known to be appropriate for permutation
testing.

While the methods studied in this project can be used in many fields, they
will be particularly applicable to genetic association studies.
Genome-Wide Association Studies (GWAS) are conducted to discover
biological pathways and prognostic biomarkers, and to guide treatment.
Some GWAS discoveries have failed to replicate, possibly due to
statistical testing procedures lacking error rate control. In this
project, the investigators study the conditions under which currently used
methods are guaranteed to appropriately control statistical error rates.
Such control will lead to better return on investments in developing drugs
and treatments.